Conference: PSW: Future of Nuclear Theory

This project supports the NSF 2026 "Future of Nuclear Theory" Project Scoping Workshop. Theoretical nuclear physics is essential for interpreting experimental data and providing predictive insights that drive experimental nuclear physics programs at world-leading experimental facilities. Furthermore, emerging technologies like artificial intelligence (AI) and quantum information science (QIS) offer transformative potential for performing numerical simulations with unprecedented precision. In this broader context, this timely workshop provides a forum for practitioners to assess recent scientific progress and identify current challenges in nuclear theory. Participants will discuss strategies to overcome these obstacles by leveraging advancements in AI and QIS, ultimately mapping a strategic path forward for the success of nuclear physics and nuclear theory scientific programs in the U.S.